The North African Environment At Risk: Conference On Environmental Sustainability and Economic Development; June 21-26, 1992; Oran, Algeria

Technical Narrative: This proposed conference, organized by the American Institute for Maghrib Studies, the University of Tlemcen, Algeria, and Mohammed V University, Morocco, is scheduled for 21-26 June 1992 in Oran, Algeria. The conference objectives are to raise awareness of current environmental problems in North Africa; to identify the most critical problems and stimulate further research on these problems; to elucidate their causes and consequences; and to explore ways to mitigate or resolve these problems. A multidisciplinary series of presentations is planned by twenty-four scientists from the United States, Morocco, Algeria, and Tunisia who will present their research results. Papers presented at the conference will subsequently be published in French and English. This conference on environmental problems in North Africa fulfills the program objective of advancing scientific knowledge by enabling leading experts in the United States and North Africa to combine complementary talents and pool research resources in areas of strong mutual interest and competence.